Patterning and Morphogenesis of the Drosophila Egg

NSF 0417129 Berg, Celeste A.
B. Project Summary
How do cell-cell interactions regulate cell shapes and movements during development?
Oogenesis in the fruit fly Drosophila melanogaster is an excellent model system for answering this
question. In the fruit fly ovary, follicle cells surround the oocyte in a single-layer sheet; signaling from
the oocyte induces a subset of follicle cells to change their shape and position and form two tubes. These
cells secrete eggshell proteins into the tube lumens to produce the dorso-lateral respiratory appendages of
the eggshell. Interactions between cells coordinate this morphogenetic process.
Two cell types make each tube: cells expressing the transcription factor Broad form the roof and
sides of each tube, while cells expressing the rhomboid-lacZ reporter gene make the floor (Dorman et al.
2004). Evidence suggests that a "boundary" exists between the roof- and floor-forming cells since they 1)
express different cell-fate and adhesion markers, 2) exhibit distinct behaviors, 3) never intermingle, and
4) coordinate their movements, even in patterning and morphogenesis mutants (James et al. 2002; James
and Berg 2003; Dorman et al. 2004; Ward and Berg, unpub.). The boundary hypothesis predicts that an
organizing center facilitates communication between the sub-domains of the dorsal-appendage primordia.
Unlike previously described boundaries (reviewed by Irvine and Rauskolb 2001), this proposal
argues that the boundary between the roof- and floor-forming cells is important for morphogenesis and
that signaling across this border coordinates the movement of these two cell types. Aim one proposes
experiments to test this hypothesis by examining the behavior of cell clones that are misplaced in the
epithelium. Aim two investigates the signaling center by disrupting candidate molecules that are induced
by the initial patterning processes and that likely coordinate the activity of the roof and floor cells.
Intellectual Merit: The proposed studies will provide insight into events that produce cell shapechanges
and movements within an epithelial tube (e.g., neurulation or kidney development). Boundaries
regulate the growth and patterning of many insect and vertebrate tissues (reviewed by Blair 1995;
Dahmann and Basler 1999; Irvine and Rauskolb 2001). This proposal extends the boundary hypothesis to
encompass the regulation of cell shape-changes and movements, thus providing a new paradigm for
examining disparate morphogenetic processes.
Broader Impact: This proposal addresses fundamental, unsolved aspects of biology: How is cell
fate translated into specific behaviors? How do cells coordinate their activities? How is the fidelity of a
morphogenetic process maintained to ensure production of functional structures? The proposed studies
evaluate the link between patterning and morphogenesis, provide insight into aberrations that contribute
to birth defects and illuminate related processes, such as tumor growth and metastasis.
The investigator trains undergraduates and graduate students at a large, diverse state university
and has developed an outreach program to bring minority high-school students into the lab. She has used
the materials and tools associated with this project to develop a genetics laboratory-course required of all
UW biology majors (670-800 students each year). This project will introduce students to the critical
thinking and scientific methods that are used to understand developmental mechanisms and will expose
these students to cell biological and genetic approaches in a highly tractable model organism.